Fundamental Studies of Heterogeneous Processes of Atmospheric Importance

Past research in atmospheric chemistry has been largely concerned with "homogeneous" chemical processes occurring among gaseous substances occurring in trace amounts. Much less attention has been given to "heterogeneous" processes, defined as those physical and chemical processes occurring at, or across, boundaries between the solid, liquid, or gaseous media. There is a growing awareness among atmospheric scientists, however, that the heterogeneous processes play important roles in chemical transformations occurring in both natural and polluted atmospheres. A recent example is the crucial role of heterogeneous chemistry on the ice particles of polar stratospheric clouds in the depletion of springtime Antarctic ozone. This project will measure mass accommodation of gaseous species, such as dimethysulfide and organoperoxy radicals, on surfaces, including carbonaceous soot material, sulfuric acid, and sea salt. Gaseous and surface reaction products will be determined by mass spectrometry and thermal desorption. These experiments are designed to yield data required for developing mathematical models of chemical transformations in the troposphere, especially in regions of high aerosol loadings.